Mathematical Sciences: Tangency, Hypercontractivity and other Domination Concepts for Stochastic Processes

The principal investigator with his collaborator S. Kwapien will study new methods for comparison of sums of independent random variables, martingale difference sequences, subordinated sequences, and other dominated sequences. The techniques that will be employed exploit the concepts of tangency, decoupling and hypercontractivity. These methods are applied to study of continuous time stochastic processes and single and multiple stochastic integrals.